SCI: Proposal for a Northern Tier Networking Development Planning Grant

The objective of this proposal is to develop a plan for establishing next-generation network infrastructure across the Northern Tier region of Idaho, Montana, North Dakota, and South Dakota. Currently, this region is supported by connectivity to Internet2 at only 2 endpoints: Seattle and Chicago. The bulk of the planning effort is to be coordinated through the PI and co-PIs, with an expert network engineer conducting a study to determine feasibility, network design, and cost options based on analysis of existing optical fiber plant and services across the region. Planning also includes the development of an organizational framework and operational structure to sustain the potential upgraded network services to the region. Four planning meetings are described in the proposal.